Seafloor Samples Laboratory

This award funds ongoing curatorial activities at the WHOI Sea Floor Samples laboratory. This repository provides facilities and services to an international audience of marine scientists, and provides the marine science community with samples for a diversity of research areas ranging from climate history to petrology to tectonics. The repository also provides immediate access to fully documented, described, and digitized core and rock samples, and new material and data are continually added to the collection. In addition to curation and sample distribution, the repository is involved in outreach activities that introduce students and other non-scientists to the collection and to sample acquisition processes.